Improvement of Instrumentation and Instructional Format in Physiological Psychology

This project provides five physiological recording instruments for 120 students per semester in six laboratory sections of a course in physiological psychology. The study of the physiological bases of behavior requires accurate monitoring and recording of physiological responses. The equipment provided for this project allows the upper division undergraduate students to gain the necessary hands on experience if they are to grasp the relationship between biology and behavior and to understand the techniques by which these relationships are discovered. When not needed for the physiological psychology classes, the equipment is employed in demonstrations in the introductory psychology classes and research methods classes. In addition, The equipment significantly increases the quantity and quality of independent research projects carried out by undergraduate students doing research in physiological psychology. The award will be matched by an equal amount from the grantee.